Obtaining Highly Dependable Communication Protocols

Communication protocols form an integral part of many complex
software systems. In many such systems, protocols' impact on
system dependability far exceeds the fraction of the total
number of lines of code devoted to their implementation.
Unfortunately, there exists virtually no systematic approach for
design and evaluation of protocols that considers dependability.

Previously, we have developed a systematic, semi-automatic
approach for validation of communication protocols. Our approach
uses semi-formal representations of protocols and efficient search
(forward search as well as fault-oriented test generation) to
analyze protocols over the entire range of scenarios, including
external events, faults (such as loss of packets, communication
link failures, loss of state in communication nodes, and so on),
as well as network topologies. The effectiveness of our approach
has been demonstrated via its application to a varied range of
protocols.

In this project, we will undertake three main tasks. First, we
will extend our previously developed framework to compute values
of appropriate dependability metrics for existing protocols of
interest to the NASA and the HDCCSR community. Second, we will
develop the first systematic approach to design new protocols that
satisfy desired dependability criteria. Finally, we will use
the testbed provided by NASA in conjunction with the expertise
and software made available by NASA and other HDCCSR researchers
to fine-tune our approaches and to demonstrate that: (i) accurate
values of dependability metrics can indeed be computed for
existing communication protocols using a systematic, semi-
automatic approach, (ii) new protocols can be designed in a
systematic, semi-automated manner to meet desired dependability
criteria, and (iii) enhancements in the dependability of
communication protocols can indeed significantly enhance the
dependabilities of many software-hardware systems of interest to
NASA and the HDCCSR community.

In addition to above technical contributions, the proposed
research will have broader impact on society. First, results of
the proposed research will enable improvements in dependability
of critical infrastructure, such as the air-traffic control
system. Second, the research will develop new approaches and
practical case studies that will provide us with a unique
opportunity to educate a large and diverse student body in
techniques for development of dependable protocols and systems.